Computer Graphics Laboratories for Dynamic Modeling and Visualization of Mathematical and Scientific systems

The College of the Virgin Islands will help its science and mathematics students better to visualize mathematical functions and relationships, and develop a quantitative intuition for the dynamic behavior of systems and the effects of changes to systems, cognitive skills which are difficult to impart in classroom situations. The use of more powerful hardware with good graphics capabilities and an icon user interface, coupled with availability of general tools for student exploration, provides an environment where these skills can be acquired. This project will provide student labs equipped with such facilities for use in all science and mathematics programs, and enable the College to enrich its science students' learning experiences and increase their exposure to new computing techniques. The college will purchase Macintosh graphics computers, networking hardware, and software.